Mathematical Sciences: Analysis of Two-Scale Dilation Equations

9307601 Wang This research concerns two-scale dilation equations, which describe the two-scale behavior characteristic of scaling functions. These equations arise in a wide variety of applications, including wavelets, sub-division schemes for computer generation of curves and surfaces, and fractal geometry (iterated function systems - IFS). The principal investigator will develop techniques based on representations of the scaling function in terms of an infinite matrix product expansion, which can be used to establish an algorithm for constructing scaling functions, and to analyze their regularity, integrability, and dimensionality. Thus far, in order to ensure convergence of the infinite matrix product,a Contractivity Assumption has been imposed. This Assumption is stronger than necessary, and the PI is investigating weaker assumptions involving bounded semi-groups of matrices, and an average contractivity factor as determined by the Lyapunov exponent. This also leads to questions regarding the structure of bounded semi-groups of matrices. The PI has also developed techniques to study self-similar lattice tilings, which arises from multi-dimensional orthonormal wavelets. The PI intends to study the following: (1) surface generation: sliding window method; (2) existence of integrable solutions; (3) dilation equations with non-negative coefficients; (4) self-similar lattice tilings; (5) the Finiteness Conjecture of Daubechies and Lagarias. This activity had substantial potential for application in many areas, including compression algorithms. ***